Development of a Center for Macromolecular Photochemistry and Photophysics

9553355 Creed A enter for Macromolecular Photochemistry and Photophysics at the University of Southern Mississippi (USM). Macromolecular Photochemistry and Photophysics (MPP) is of unquestionable scientific and technological importance. The results of basic research on this topic would have an impact on technological areas as diverse as degradation of plastics by sunlight, the development of optical computers, and the fabrication of increasingly smaller circuits for electronics applications. The Center will draw upon the considerable body of expertise of nine current faculty in the Departments of Chemistry and Biochemistry, Physics and Astronomy, and Polymer Science at USM, and make use of existing equipment and other physical facilities. It will draw these faculty closer together and promote synergism in their research efforts through a broad spectrum of activities such as participation in joint research projects, funding of graduate and undergraduate students, participation in a seminar series and international conferences, participation in a literature discussion group, funding of travel to conferences and industrial, academic, and government labs, funding of a seminar series and consultant's visits to the campus with special emphasis on visitors from industrial labs, provision of specialized courses in photochemistry and photophysics, and provision of modest support for operation and repair of common, specialized research equipment. The Center faculty will also serve the departments in an advisory role particularly in such matters as identification of important research areas and selection of new faculty, library acquisitions, and equipment acquisitions. The Center will generate promotional materials for such crucial activities as recruitment of graduate students and informing industry of the Center and the expertise of its faculty. Photochemical projects range from studies of the photochemistry of polyimides to the development of new functionalized photopol ymerizable monomers. Photophysical projects range from the use of fluorescence probes in sol-gel systems, associative thickeners, and surfactant polymers, to studies of dynamic light scattering in liquid crystal polymer dispersions.